Topics in Automorphic Form

Abstract for award DMS-0355285 of Mao

This work concerns some problems in the theory of automorphic forms. The
PI will use the theory of automorphic representations to study a
computational number theory problem, and develop an algorithm for L-values
based on a relation between L-values and Fourier coefficients of half
integral weight forms. The PI and others will investigate the
generalization of this relation to L-values of automorphic forms on higher
ranked groups. The PI will continue development of the theory of relative
trace formula with S. Rallis.

This research is in the area of number theory. Number theory has its
historical roots in the study of natural numbers. It is among the oldest
branches of mathematics. Within the last half century it has become an
indispensible tool in diverse applications in areas such as data
transmission and processing, and communication systems.